Instrumentation for Structural Biology

The newly-established structural biology group, a joint initiative between the University of Pennsylvania and The Wistar Institute, proposes to install a rotating anode X-ray generator, multiwire area detector, computer, and graphics system. The instrumentation will complement equipment already provided to the joint venture by each institution to create a fully-equipped facility for X-ray crystallography. The interests of the structural biology group are diverse, and structural problems ranging in size from small molecule host-guest complexes to large macromolecular assemblies such as adenovirus are currently being addressed. The acquisition of the proposed instrumentation will permit analysis and interpretation of all sizes of structural problems within the range of a few Angstroms to a few hundred Angstroms.